Improved Understanding of Molecular Clouds and Emission Line Objects with Laboratory Astrophysics Studies at the Heidelberg Ion Storage Ring

Dr. Daniel Savin and Dr. Holger Kreckel at Columbia University will examine destruction rates for the hydrogen molecule H3+ in the laboratory with applications for studying molecular clouds and emission line objects such as Galactic and extragalactic gaseous nebulae. The laboratory measurements will focus on measurements of H3+ dissociative recombination, which plays an important role in the formation of complex molecules observed in molecular clouds. The team will also make similar measurements for oxygen (O2+), sulfur (S2+), and neon (Ne2+) molecules to determine the effective temperature of ionizing stars in HII regions.

This work will impact the astronomical community by generating atomic and molecular data that can be used to interpret astronomical observations. This will be a trans-disciplinary effort, bringing together astrophysics, atomic and molecular physics. The research will also help foster international collaborations in astrophysics as it will be carried out using the heavy-ion Test Storage Ring at the Max Planck Institute for Nuclear Physics in Heidelberg, Germany, as no facilities currently exist in the U.S. for the proposed studies.